Building Functional Nanographenes and Nanoribbons

Dr. Colin Nuckolls and Dr. Xavier Roy of Columbia University will develop new ways to build nanographenes and graphene nanoribbons: ultra-small flakes and ribbons of carbon whose shapes determine how they conduct electricity and respond to magnetism. These materials hold great promise for future electronics and quantum materials, but they have been extremely difficult to make in useful quantities. This project will use molten metals, such as potassium, as a clean reaction medium to produce the carbon structures at scale and with precise control over their shapes and edges. Some of these structures carry unpaired electrons whose quantum spin can store and process information, making them promising building blocks for quantum information science and future quantum computers and sensors. The project will train a postdoctoral researcher and a graduate research assistant to build the STEM workforce of the future. This program will also support the team’s Broader Impacts outreach activities, such as the “Materials Madness”, which brings hands-on materials science to elementary and middle-school students to strengthen the talent pipeline and ensure the United States is a leader in Quantum Information Science.

This project will establish molten alkali metals as a scalable, solvent-free medium for the cyclodehydrogenation of aromatic precursors into pristine, unsubstituted nanographenes and graphene nanoribbons, overcoming the scalability and solubility limits of conventional routes. The work will target three structural families, zigzag-edged, armchair-edged, and contorted nanographenes and nanoribbons, and will map how edge topology, curvature, and alkali-metal doping govern open-shell magnetism, quantum confinement, and superconductivity. Because these unsubstituted aromatics couple strongly in the solid state, they would enable bulk studies of spin-based phenomena relevant to quantum information science that surface-bound or solution-based materials cannot access.